"Support of U.S. Participation in the Sixth International Symposium of Model Estuaries"

ABSTRACT

Six estuarine biogeochemists will be selected from the scientific community to participate in the Sixth International Symposium of Model Estuaries. The primary purpose of this symposium series is to bring together estuarine biogeochemists from around the world to exchange results of research on disparate system will be to discuss present-day knowledge on the impact of the largest deltas in the world on the coastal invironment, taking into consideration both terrestrial areas and coastal waters. Each participant will present a paper that will be published in a special edition of Marine Chemistry.